Satellite Center/Research Site to Center for Dielectric Studies The Pennsylvania State University with Focus on High Energy Density Dielectrics

EEC-0002610
University of Missouri Rolla
Anderson

The purpose of this initiative is to understand the high field properties of high dielectric constant materials and determine how these properties relate to pulse power applications. Examples of some of the fundamental information which needs to be known are: 1) field distributions within dielectrics - i.e. field modeling 2) basic defect structure of high voltage dielectrics to mitigater ionic conductivity and associated electrical degradation, 3) high field dielectric behavior: losses and dielectric constant, 4) the influence of macroscopic processing on properties 5) resonant behavior under pulsed conditions, 6) charging and discharging behavior under high field conditions 7) the influence of rapid surface discharge on high dielectric constant materials.